Presidential Young Investigator Award: Research in Design Automation

This study aims to investigate techniques for verifying or gaining confidence in the correctness of logical descriptions of digital circuits. The approach is based on verifying the correspondence between a logic diagram and a register-transfer level description by means of symbolic simulation, or some mixture of symbolic and actual simulation. The study implements such a verification system (probably on a LISP-based workstation) and then evaluates algorithms for the various tasks that it entails (such as logic minimization). Research continues on routing of integrated circuits when certain routing layers are strongly preferred over others.